Hawaii Ocean Mixing Experiment: Modeling Survey: Direct Observations of Turbulence

Gregg 9818693
It is proposed to conduct a large coordinated experiment near the Hawaiian
Ridge to determine whether sites with rough topography are responsible for the
mixing of the global ocean. The goals are to identify the major energy pathways
for ocean mixing and achieve an approximate energy budget for the region. The
Survey experiment will address the problem of finding a Nearfield site through
broad ranging and focused survey. In particular, this project will quantify the
geographic variability of shear, stratification and kinetic energy dissipation in the
upper 1500 m around the Hawaiian Ridge.